Theoretical Tools for a Concise Description of Electronic Structures of Molecules

In this study in the Theoretical and Computational Program of the Division of Chemistry methods are being constructed, implemented, and tested for the rigorous interpretation of molecular electronic wavefunctions. Of particular interest are electronic densities in organic free radicals. Rigorous definitions are being obtained for charge-transfer components of bond energies and for electronegativities of atoms in molecules. %%% The description of the bonding of atoms to form molecules is being advanced in this program of theoretical and computational chemical studies. New ways are being developed for defining the contributions to bond energies and the properties of bound atoms.